omputational Neuroscience/Biology in Montana

9632680 McMillan This project is designed to capitalize on (i) the existence of an unusually large number of productive neuroscientists at a public university in a rural state as well as faculty in the Departments of Mathematical Sciences and Computer Science whose work relates to neuroscience and (ii) the desire of a group of well-known computational neuroscientists at prestigious institutions throughout the country, as well as in Europe, to establish a literal and virtual collaboratory that will facilitate their ability to exchange ideas as well as to share facilities. The primary goal (1-5 years) of the project is to establish an Institute of Computational Neuroscience at Montana State University-Bozeman (MSU). In addition to the neuroscientists already at MSU, the institute will, at least for the first few years, consist of two new on-site faculty members and five affiliate members. The affiliates will spend significant time at MSU each year and will develop a network to enhance their collaborative interactions when they are at their home institutions. A long term goal will include efforts to recruit as many affiliates as possible to become resident members of the institute.